Collaborative Workshop on the Mission of a National Center for Ecological Synthesis and Analysis; Albuquerque, NM; October 1992

Several recent reports converge on the need for an National Center for Ecological Synthesis and Analysis. The PIs will run a workshop, sponsored jointly by the Ecological Society of America and the Association of Ecosystem Research Centers, to assess and summarize the ideas of ecologists about such a center. The workshop is designed to sample a broad spectrum of ecologists and deliver a summary report to NSF in timely fashion. Major goals are to (1) identify the kinds of questions that can only or best be addressed by such a center, questions that are impossible or very difficult to solve under extant mechanisms; and (2) identify and assess possible alternative administrative structures for such a center.